Mathematical Sciences: On the Brauer Group of a Variety

This project deals with questions in algebra concerning the theory of Azumaya algebras on a variety. If X is a variety over an algebraically closed field k, the Azumaya X-algebras are parametrized up to Brauer equivalence by the Brauer group B(X). The principal investigator will study B(X) using cohomological techniques from algebraic geometry. Then he will apply these properties to gain information about the geometry of the variety X. This research is in the general area of algebra and is an interesting combination of ring theory, number theory and algebraic geometry. Given a surface it is possible to associate with it a coordinate ring and with this ring a group in an effort to determine the geometry of the surface.